Acquisition of Spectrophotometric and Computer Interfacing Systems

The department is seeking to improve the sophomore and junior level chemistry laboratories. The development and implementation of modern experiments into the quantitative analysis laboratory is of immediate concern. To effectively grasp new methods and techniques used in the industry's increasingly computerized laboratories, it is necessary for the student to have "hands on" experience with computer-controlled instrumentation. Specifically a scanning uv-visible spectrophotometer and a fluorescence spectrophotometer, both interfaced to computers, are being added to expand the current level of experiments and data handling capabilities. In addition, an introduction to the interfacing of simple equipment such as pH meters and temperature probing devices is available to the student as a result of the computer's versatility. The grantee is matching the award from non-Federal sources.